"Structure and Dynamics of Social Networks and Other Networked Systems."

The principal investigator and his colleagues study the
structure and function of real-world networked systems,
particularly information, computer, and social networks. The
work includes an empirical component concerned with the discovery
and analysis of network structure, including collaboration
networks, citation networks of papers and of registered patents,
transportation and other geographic networks, social networks,
and computer networks of various kinds including administrator
and server-client networks and networks of "weblogs." Properties
studied include correlation functions, spatial structure,
centrality and similarity measures, and measures of assortative
mixing and community structure. There is also a theoretical
component to the work, involving the development of models to aid
in the understanding of the effects of network structure. Of
particular interest are generalized random graph models of
networks, percolation models of network resilience, growth
models, exponential random graphs, and Markov graphs. The
project also includes the development of new computer algorithms
for extracting and visualizing network structure, particularly
for the detection of community structure in networks.

The investigator and colleagues try to understand the form
and behavior of networks, particularly information networks,
computer networks, and social networks. The work has bearing on a
number of issues of current importance. A knowledge of the
structure of networks of acquaintance is crucial to an
understanding of how information, such as news, rumors, consumer
trends, etc., spreads through society. Similarly, networks of
physical contact between people govern the way in which diseases
spread and computer networks govern the spread of computer
viruses. A proper understanding of the nature and progress of
infections is impossible without good network models. The work
described here is aimed both at determining what the structure of
the networks in question is, and also at modeling the effect of
that structure on possible outcomes. As well as enhancing basic
understanding of these problems, the results point to ways in
which network structure or dynamics can be changed in order to
either improve network transmission (in the case of information)
or slow it down (in the case of epidemics). For disease
transmission, for instance, it may be possible to suggest
effective targets for immunization or education campaigns to slow
disease spread. New data resources and analysis techniques also
are developed that will aid future work by other researchers on
related topics.